Knowledge and Strategies in Young Children: Two Paths Toward Independent Learning

While most preschoolers know very little about most topics
in comparison to adults, there are notable exceptions. Some young children
develop intense interests in domains such as dinosaurs or trains, and
doggedly pursue their parents and teachers to provide them with books,
videotapes, and toys that will help to increase their knowledge in these
areas. We currently know very little about how such elaborate networks of
knowledge are constructed by very young children. We know even less about
how children discover and execute strategies to facilitate their learning
outside of the research laboratory. While it seems feasible that possessing
high levels of knowledge in one area should be very helpful when children
begin to learn about a new, related area, we know very little about the
mechanisms through which existing knowledge might influence new learning.
The present research is focused on these issues. In particular, we aim to
discover the mechanisms through which children's existing knowledge and
strategies influence new learning. Previous studies have shown that
children tend to behave more strategically, gain more knowledge, and feel
more excited about learning when it is situated within a specialized domain
of information that is considered to be both interesting and highly
familiar. Understanding the interplay between children's knowledge and
strategies can help teachers make informed decisions about both the
sequencing of curricular units, and the timing of learning strategy
instruction to best facilitate the development of lifelong learners.